2009 ACM Recommender Systems Conference Doctoral Symposium

This award supports a doctoral symposium at the 3rd ACM Conference on Recommender Systems (RecSys 2009) to be held in New York, NY October 22-25, 2009. During the last decade the commercial importance of recommender systems has grown, spurring the creation and growth of this conference. RecSys is the leading international forum for the presentation and discussion of research and practice on recommender systems. The doctoral symposium will help students refine their dissertation projects so that they can make stronger contributions to the solution of critical intellectual challenges in recommender systems. The doctoral symposium will help develop a cohort of recommender systems researchers who will contribute to future academic and industrial research. By helping doctoral students to appreciate each other’s different perspectives and form a cohort across those boundaries, we can extend the rich interdisciplinarity of the field and foster commercial and intellectual innovation for the future.